Collaborative Research: Mathematical and Computational Meghods for High-Performance Lightwave Systems

Novel transmission formats hold the potential for large increases in
the total system capacity of optical fiber transmission systems. At
high bit-rates, however, nonlinear and stochastic physical effects
contribute to limit the overall system performance. The deterministic
impairments are mainly due to the combination of nonlinearity and
dispersion. The stochastic impairments occur due to amplifier noise
(which induces amplitude, timing and phase fluctuations) as well as
polarization-mode dispersion. All of these effects produce impairments
which lead to unacceptable rates of transmission errors. However,
the large scale and complexity of these systems, the variety of effects
involved, and the extremely low bit-error-ratios required of these
systems (which requires studying the occurrence of extremely rare
events) all contribute to make the modeling of optical fiber
communications a challenging task. Recent work has demonstrated that
careful mathematical and computational modeling can be very effective
in describing the behavior of realistic optical fiber transmission
systems. This research project aims at evaluating the potential of
new transmission formats and assessing how each of them is affected
by the various transmission impairments. The methods that will be
developed in this project are expected to make an impact on how
these systems are modeled and designed. In addition, because
new ultra-short pulse lasers share many similarities with
dispersion-managed optical transmission systems, the mathematical
techniques that will be developed as part of this research project
will help researchers understand the behavior of these lasers and
their fundamental limits.

The development of high-capacity optical fiber communications has
been a major technological advance that enabled the widespread use
of the internet and the world-wide-web which revolutionized our
day-to-day interactions. The demand for further increase in the
total transmission capacity remains unabated, however, fueled by
emerging applications such as video-on-demand, video-conferencing
and others requiring very large bandwidths. A key feature of this
collaborative research project is the combined use of sophisticated
mathematical and computational methods to model the behavior of
realistic lightwave systems, with the aim of developing the accurate
tools which are needed to efficiently study the behavior of optical
fiber transmission systems and to design the next generation of
systems. As such, the outcome of this project will contribute to
strengthening the national infrastructure and maintaining U.S.
competitiveness in an area which is of great national interest,
thus benefiting not just researchers, but also the community at
large.